Main Engines for the RV Weatherbird II

9812204 HANSELL This project will replace the two main engines on the Research Vessel WEATHERBIRD II during it's scheduled ship yard visit in September 1998. WEATHERBIRD II is a general purpose research ship owned and operated by the Bermuda Biological Station for Research (BBSR), Inc., a Bermuda-based United States non-profit research and education institution. The replacement diesels (Lugger 6140 AL2) will increase engine overhaul interval from our current <10,000 hr overhaul interval to 20,000 hr. By extending the overhaul intervals they will reduce maintenance costs, both in parts and labor, and in ship down-time. Fuel savings in each new engine will be 3 gal/hr, reflecting a 12% reduction in fuel consumption. The project is under the direction of Dr. Dennis Hansell. ***